Coastal Effects of Tsunamis II

This action is for a one-year extension to a research program (BCS-8715450) supported by NSF: the goal of this project is to develop a better understanding of the destructive action of a tsunami (seismic sea wave) as it impacts a coastal zone. The extension expands the research scope; it also provides an opportunity to reanalyze the extensive quantity of laboratory experimental data obtained during the past five years of research. The motivation for this extension arises from the results obtained previously. The objective is to develop a thorough understanding of the fundamental behavior of broken tsunami (bore) propagation up a sloping beach; the tsunami actions at the shore; and the ensuing runup and drawdown processes. These phenomena are fundamental to an understanding of the destructive effect of a tsunami as it reaches a coastal zone.